Phase-I Study of the Effects of Professional Development and Long-term Support on Curriculum Implementation and Scaling Up

This Phase 1 study consists of two components: the Curriculum Research and Development Group (CRDG) at University of Hawaii at Manoa will prepare a one week introductory teacher institute and an expanded and improved version of long-term support. In the second component the CRDB will develop and validate instruments needed for a Phase 2 study. The Phase 2 study will compare the new professional development program, using a randomized clinical trial approach, to the existing Foundational Approaches in Science Teaching program to test for both teacher improvement and student achievement scores.